Mathematical Sciences: Minimal Embeddings in Central Simple Algebras

This project is concerned with the structure of central simple algebras and the ways in which they combine to form Brauer groups. The principal investigator will study central simple algebras in order to explore how one of them can contain another. An ultimate goal is to explore how semisimple algebras, which are built from central simple algebras, can be inserted into central simple algebras over other fields. Solutions to these problems will have applications in the theory of finite groups. The research supported concerns the study of the Brauer group of a field. This group is an invariant that helps to explain the structure of the algebras over fields that occur as subalgebras of rings of matrices or linear transformations. This work has shed light on the structure of finite dimensional division rings and has potential applications to the theory of finite groups.